Basic Properties of Diamond Coated Refractory Metal Mecroemitters

9705187 Golden This project aims to improve understanding of fundamental properties of CVD-grown diamond films on refractory metal microtips, including the mechanism for negative electron affinity and the effects of surface passivation. The approach is to study the photoelectric threshold of CVD diamond films with and without adsorbates such as Cs and Ti, Mo and other refractory metal microtips, and refractory metal microtips that have been carburized and had thin diamond coatings applied. Techniques to be used in the study include atomic resolution scanning tunneling microscopy,. ultraviolet photoelectron spectroscopy, Raman spectroscopy, X-ray photoelectron spectroscopy, scanning electron microscopy and transmission electron microscopy. %%% The project addresses basic research issues in a topical area of materials science having technological relevance to electronics and photonics. The research will contribute basic materials science knowledge at a fundamental level to provide a basis for incorporating diamond films into devices such as large area displays. An important feature of the program is the integration of research and education through the training of students in a research area with strong technological relevance. ***